SBIR Phase II: Novel Caged Urea as a Nitrogen Compost

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project is through the development of a high-efficiency compost that delivers nitrogen while significantly reducing by-products. This project provides a cleaner targeted solution by using a molecular cage to encapsulate nitrogen. This project addresses the high-risk challenge of engineering a biodegradable, nutrient-based molecular encapsulation system for urea to reliably suppress nitrogen transformation losses across varied surroundings. The core innovation involves embedding urea within a calcium polyphosphate molecular cage—a fundamental departure from conventional polymer coatings and chemical inhibitors. This approach requires precise control of structure–function relationships, a significant technical novelty in the field. The cage is insoluble yet root-soluble, protecting urea from premature microbial breakdown and reducing nitrogen emissions. The primary objective is to scale this technology into a consistent, field-ready compost. The intellectual contribution lies in advancing a new class of nutrient-encoded materials that integrate function with material structure, eliminating microplastic residues while enabling controlled, root-responsive nutrient release. The methodology employs a multi-pronged approach: (i) optimizing formulations for structural stability; (ii) developing composite systems using lignocellulosic matrices to resist enzymatic transformation; (iii) incorporating functional additives to modulate nitrogen pathways; (iv) evaluating cost-effective physical forms for manufacturing; and (v) pilot-scale process development to address viscous melt handling. Products will be validated through multi-location trials to assess agronomic performance and other impacts. The outcome will be a scalable, resilient compost platform with superior nitrogen use efficiency.